Development of Biochemistry Laboratory Curriculum

The Department of Chemistry and Geology at Mankato State University has recently acquired a high speed centrifuge and a liquid scintillation counter for use in the improvement of undergraduate instruction in biochemistry. The major objective is to revitalize the biochemistry program by implementing a senior level "project oriented" laboratory course. In this course, students learn to work as a team to solve a specific research problem involving the characterization of a plant RNA virus. The students design an experimental strategy to solve the assigned problem including learning how to use the literature, planning and organizing experiments, performing a wide range of preparative and analytical biochemical techniques, and interpreting and communicating data.